Evaluation of Methods for Long-term Conductivity Measurements for the World Ocean Circulation Experiment (WOCE)

This project addresses the sensors and recording system necessary to make long term in situ measurements of water properties. The main problem in obtaining the required accuracy (about 0.01 ppt for salinity) is the stability of conductivity measurements. The principal investigator has been working with moored conductivity measurements for the past 15 years and has used both electrode and inductive sensors. In the deep ocean, very small drifts have been observed over several months, but in shallow waters, drifts of as large as 0.1 ppt in salinity have occurred in a few months. Four tasks will be carried out: (1) conductivity sensor performance in various configurations and locations will be summarized, (ii) spatial and temporal aliasing errors will be investigated, (iii) sampling and digitizing accuracy will be estimated, and (iv) a power budget and memory size will be derived.